Interprocess Communication and Synchronization in Parallel and Distributed Systems

Communication and synchronization among processes is of fundamental importance in parallel and distributed systems. Together, they have an impact on the efficiency, the design, and the understanding of concurrent programs. This research aims at examining shared variable and message passing systems with respect to mechanisms for interprocess communication and synchronization. In the case of shared variable systems, the question of cache coherence and the appropriateness of non-atomic shared memory is considered. Proof techniques and programming methodologies are developed for dealing with non-atomic memories. In the case of message passing systems, the question of locality of computations is investigated. Complexity measures that measure locality and efficient algorithms for commonly occurring synchronization problems are developed. The impact of failures and dynamic networks on algorithms and tight lower bounds on various performance measures are explored. Finally, the research examines mixed programming paradigms that support both shared memory and message passing. As a part of this research, efficient simulations of shared memory on an underlying message passing architecture are designed.